NSF Young Investigator Award: A Design Language for Asynchronous Circuit Synthesis

Burns This research is on developing a unifying design language and framework in which asynchronous circuit designs can be completely specified, and in which decisions made during synthesis of the implementation can be recorded. The language is an extension of Hoare's CSP with a means to specify structural hierarchy with a refinement hierarchy superimposed upon it. The research consists of three interconnected tasks: language definition; developing tools such as a parser, flattener, view generator, handshaking expansions, and production rule sets; and application of the tools to a large design or a real time system. An algorithm for determining the maximum time separation of event occurrences in a concurrent system is being developed.